Computer Laboratory for Elementary and Secondary Teacher Preparation

9351753 Buckeye Computer Laboratory for Elementary and Secondary Teacher Preparation A computer laboratory is supporting three mathematics Elementary and Secondary Teacher Certification and Endorsement programs. The geometry area in these programs, in particular, is benefiting from an extensive microcomputer laboratory experience in order to prepare prospective teachers for an effective classroom environment in the elementary and secondary schools. A major goal of the facility is to enable students to use computer software to explore the ways microcomputers can provide technological assistance for the mathematics teachers K-12. ***z